RCN: RATES: Building a Spatial and Temporal Framework for Understanding Surface Earth Processes

This project will establish a Research Coordination Network (RCN) "EarthRates: Linking Scales Across the Sedimentary Crust" that will provide the framework and opportunity to engage communities and forge new collaborations in order to foster transdisciplinary research on Earth's sedimentary crust. This RCN will bring together investigators from NSF-sponsored entities such as the Paleobiology Database, Neotoma, Macrostrat, EarthTime, EarthChem, Earth-Life Transitions, the Continental Scientific Drilling Coordination Office, and Flyover Country to strategize, leverage and build community collaborative efforts to address major grand challenges in Earth system science. These include: 1) how have the oceans, the Earth's sedimentary crust, carbon sinks and soils, and life itself evolved together, and what does this tell us about the future trajectory of the integrated Earth-life system? and 2) what are the ranges of ecosystem response, modes of vulnerability, and resilience to changes in Earth-system states? By bringing investigators and leaders from these groups together and building stronger partnerships, we will move towards the goal of developing a fully integrated four-dimensional digital Earth to fully understand Earth's dynamic system evolution.
EarthRates RCN will build on recent activities of the communities and facilitate efforts to bring these groups together to 1) hold workshops, 2) develop working groups, 3) provide training opportunities to build a future workforce, 4) launch data mobilization campaigns, 5) strengthen community ties, 6) discover new partners and opportunities, 7) promote with social media and strong web presence (such as maintaining the development of a 'Broader Impacts Clearinghouse', extending outreach opportunities with Flyover Country mobile app, and increasing efforts to recruit, retain, and advance members of underrepresented groups), and 8) integrate efforts to build research capacity in the sedimentary crust by exposing and visualizing data from EarthRate's community data repositories. This project will create a stronger scientific infrastructure, leveraging funds already spent by NSF to further build the community that is critical to understanding Earth's past and future states.